Undergraduate Research Experience in Biological Systems Engineering

9912263
Vaughan

This REU Site provides an opportunity for ten advanced undergraduate students to conduct independent research during a 10-week summer period under the guidance of faculty in the Biological Systems Engineering Department at Virginia Tech.